Science Education for Equity in K-6 (SEEK)

This Noyce Track 3 project aims to serve the national need of developing highly effective science teacher leaders. Additionally, this project will support sixteen science Master Teacher Fellows by providing professional development in science teacher leadership. The proposed project components will enable high-achieving practicing teachers to become leaders in elementary science instruction in their schools.

This project at Western Washington University includes partnerships with high needs schools in four Northwest Washington districts: Bellingham, Mount Vernon, Nooksack, and Sedro-Woolley, as well as with the Skagit Watershed Council, Whatcom Coalition for Environmental Education, and the Northwest Educational Service District. Project goals include: (1) Building a teacher leadership model that will enact a shared vision of effective science education in participating schools; (2) Developing sustainable partnerships between elementary schools, higher education, and community organizations based on reciprocal learning that builds coherence between K-6 science education and teacher preparation; and (3) Generating knowledge about essential elements and outcomes of elementary science-focused teacher leader development. This project will produce sixteen teacher leaders over 5 years. We will use research-based processes and tools to enact a model of teacher leadership that uses networked improvement communities to enable rapid testing and evaluation of innovations targeting the schools’ vision for science education. Teachers and principals at high-needs schools will take leadership in creating the conditions to enact truly high-quality science education at the elementary level. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (a) What are elements of a successful elementary science-focused teacher leadership program and how does the leadership get taken up by peer teachers? and (b): What are the key aspects of partnerships between higher education, K-12, and community organizations and how are they sustained? This Track 3: Master Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.